Dynamical Systems in Biology

Broadly, the investigator studies specific mathematical
models arising from the life sciences and develops new
mathematical tools with which to analyze such models. Models of
biofilms, previously developed by this investigator and
collaborators, are used to study important phenomena such as gene
transfer among micro-organisms and quorum sensing. These models
are based on the classical chemical engineering bio-reactors,
namely, the continuously stirred tank reactor and the tubular
plug flow reactor with dispersion, and take the form of ordinary
differential equations for the former and coupled parabolic
equations with nonlinear boundary conditions for the latter. The
aim is to understand the factors that facilitate biofilm
formation, the factors involved in the successful introduction of
new genes via plasmid transfer in biofilm communities, and the
role of bacterial quorum sensing in these processes. The study
also addresses a fundamental issue in population biology -- the
so-called "paradox of the plankton": why can so many plankton
species be supported by so few limiting resources in lakes and
seas? The same paradox arises with the microbial denizens of
arid soils that receive infrequent rains and deposition of
nutrients -- another focus of the project. The investigator's
aim is to introduce mathematical models based on the classical
model of a multi-species community in which members compete
exploitatively for several essential (nonoverlapping) resources
(light, nitrogen, carbon, etc.) in a well-mixed environment and
to provide mathematically rigorous results of an explanatory
nature rather than numerical simulations. On the mathematical
side, the theory of monotone dynamical systems and persistence
theory have greatly contributed to the understanding of
biological models and the study aims to enhance and build on
these theories.

A substantial effort is devoted to study mathematical models
of microbial processes in environmental settings where biofilms
may form on surfaces. Biofilms are of great importance in the
health sciences and industry, where their formation typically
results in negative outcomes. They are responsible for food and
water contamination, dental caries and periodontal disease, and
the contamination of medical implants. The focus is on
understanding conditions favorable for biofilm formation, factors
involved in gene transfer (e.g., antibiotic resistance) among
microorganisms in biofilms, and the ability of organisms to
chemically communicate their existence and current state to
others organisms on these processes. Broadly, the study is
characterized by a desire to obtain mathematically rigorous
results along with computer simulations. Modelling and computer
simulations are widely acknowledged to be important tools in the
study of biological systems. The modelling process forces a
careful description of what are the known and important features
of a system. Computer simulations are important in order to
explore the implications of assumptions and sensitivity of model
behavior to parameter changes. However, computer simulations
alone seldom lead to a comprehensive understanding of a model,
let alone the underlying biological process, due to the inherent
limitations of the computer itself -- one can only test a
relatively small sample of the full range of model parameters,
follow the time course of the model over a relatively small time
window, for a relatively small number of possible initial data.
Rigorous mathematical analysis can lead to real understanding of
a model and the underlying biological processes by identifying
mechanisms responsible for model behavior. Unfortunately, the
mathematical tools necessary to provide a careful mathematical
analysis are often not currently available. The study seeks to
develop such tools and to apply them to problems in the life
sciences.